Search for Extraterrestrial Life Exhibition

A permanent exhibition entitled "Search for Extraterrestrial Life" will engage visitors at the New York Hall of Science in applying the fundamental biology of life on Earth to understanding the search for life elsewhere. The 4,000 sq. ft. exhibition and accompanying programs will engage visitors in learning more about the wide range of conditions that support life on Earth, and how these life requirements shape the search on Mars and other planetary objects for any existing life forms. In addition, the technologies and strategies that scientists are developing to detect any life elsewhere will be highlighted.

It is expected that 500,000 visitors each year will participate with the exhibit and its associated programs. Another dissemination plan for the project will be posting fabrication drawings and scripts in readily accessible formats on the Internet. Copies of all computer interactives on electronic media will be available to science-technology centers, museums and other informal learning institutions.